Neural Control of Reproduction

One of the fundamental problems in psychobiology is understanding how motivation is translated into behavior. Where motivation is dependent upon hormone effects on brain, it is reasonable to suppose that hormone sensitive brain systems must ultimately integrate with neural tissues more directly involved in the control of movement. Electrical stimulation of parts of the thalamus, a discrete brain structure, provoke coordinated locomotion. Dr. David Edwards will focus his research on examining the potential contributions of certain thalamic regions to the control of male sexual behavior in rats. He will use lesion techniques to study the importance of each thalamic regionin male sexual behavior. He will also determine other brain regions essential in the sexual behavior of males. Dr. Edwards has been productive in this research area in the past and his preliminary results suggest he will continue to be a leading figure in this area of behavior.